Single Instruction Stream Multiple Data (SIMD) Parallel Algorithms for Nested Relational Database Implementation

The Data Structure Machine, a massively parallel computer is used as a basis for implementing a nested relational database system. Nested relational database are formed by relaxing the First Normal Form (1NF) requirement that was imposed on relational databases. As a result, values can be complex objects instead of atomic values we associate with the relational model. Object oriented databases, engineering and graphics applications, and image analysis can all benefit from an efficient nested relational database implementation. The Data Structure Machine (DSM) is a particularly good candidate for a nested relational database computer. The scaling properties that the simple tree-base connection topology provide, will allow the DSM to grow to a massive degree of parallelism. Further, the DSM is optimized to exploit locality within data structures. A serial nested relational database will maintain the locality properties that the DSM exploits.